The Non-Genomic Action of Progesterone (P) upon the CNS

IBN-9412116 Ramirez Sex steroids, including progesterone, modify specific tissues in the body by binding to unique proteins called nuclear steroid receptors andactivating specific genes in the cells of that tissue. Dr. Ramirez is studying how the sex hormone progesterone exerts its action upon the central nervous system (CNS) of female and male rats. In the CNS, progesterone appears to bind to specific binding sites on the membranes, indicating that progesterone, besides acting on the genes of the cells, can also alter the function of neurons by binding to the cell membrane. Progesterone appears to bind to a membrane progesterone receptor that is unique to the CNS of female rats since it is not functionally active in the CNS of male rats. The specific objectives of this study are: 1) to study the characteristics of the membrane binding sites in membranes isolated from different regions of the brain, 2) to isolate and characterize a protein from the cerebellum of the brain that may be the membrane progesterone receptor, and 3) to demonstrate that this membrane progesterone receptor in the CNS is regulated by the estrous cycle of the female rat. The unambiguous proof of the existence of membrane molecules from the CNS that bind progesterone will help to clarify some of the actions of steroids upon mood and behavior.